Disaster Research in the Social Sciences: Future Challenges and Opportunities

The U.S. is vulnerable to a wide variety of natural, technological and
human-induced hazards. While local decision-makers have the final
responsibility for coping with the threat of disaster, federal agencies have
developed science-based activities, such as the National Earthquake Hazards
Reduction Program (NEHRP), that are intended to help further effective
disaster reduction efforts in at-risk communities throughout the nation. The
National Science Foundation (NSF) has been a major supporter of social
science disaster research, including such research carried out as part of the
NEHRP effort. The objective of this study is to provide NSF with a detailed
appraisal of the short and long-term challenges facing the social science
disaster research community and new and emerging opportunities for advancing
knowledge in the field and its application for the benefit of society. The
study is intended to provide a basis for planning future social science and
multidisciplinary research related to natural, technological and willful
disasters in response to challenges and opportunities presented by a changing
nation and world. A committee of distinguished experts in the field will be
established to carry out the study.